Vibration Control of Rotordynamic Systems using Motors

Abstract
The control of vibration in rotordynamic systems is an important problem in engineering.
These unwanted oscillations can lead to premature failure or poor performance of the system.
Traditionally active vibration control of rotordynamic systems is accomplished by adding
actuators (electromagnets or active magnetic bearings) that apply a radial force to the shaft
of the rotor. These actuators are used in feedback control systems that are designed to
ameliorate the effects of the unwanted vibration.
This project develops an approach to the control of vibration in rotordynamic systems
that does not rely on external actuators. Here we consider rotordynamic systems that are
driven by electromagnetic motors. By modifying the commutation and control of these
motors they can be made to produce a torque and a radial force. This radial force can
then be controlled to suppress the vibrations in the system. To evaluate the torque/force
generating capability of motors this project has set three broad objectives; (1) To develop
and experimentally validate models, suitable for use in control system design, that accurately
predict the behavior of motors that are used as torque and radial force generators. (2) To
demonstrate the practical feasibility of using motors as torque/force generators in actual
rotordynamic systems. Specifically, a ywheel energy storage (FES) device and a a hard
disk drive (HDD) system. (3) To integrate these new techniques into the undergraduate
curriculum and provide research opportunities for women and underrepresented minority
students.
Intellectual Merits: The use of axial and radial ux permanent magnet motors to generate
radial forces for vibration suppression is believed to be a novel approach. In addition, the
actuator modeling and control techniques developed in this project can be applied to other
AC/DC motor designs.
Practical FES devices that use magnetic bearings require precise regulation of the air
gap between the rotor and the stator. The controllers must provide stable operation over
a range of speeds while rejecting the harmful effects of disk imbalance and base excitation.
This project will design and implement a multiple model controller for a FES device that
uses an axial ux motor for torque and radial force production.
Broader Impacts: By eliminating the need for external force actuators this research will
lead to FES devices with higher energy densities. This would make FES systems a practi-cal
alternative to electrochemical energy storage systems. When used in conjunction with
renewable energy sources these improved FES devices can help reduce national dependence
on fossil fuels.
This research can also provide a low-cost means for suppressing vibration in HDD sys-tems,
thus improving the data storage capabilities of these devices. It is estimated that the
United States digitally stored more than 400 billion documents in 1997, with 72 billion new
documents being added each year. Thus, it is important to conduct research that will lead
to increased reliability of HDD devices.
The education initiatives of the proposed project will focus on bringing modern techno-logical
developments in bearing design and motor control into the undergraduate classroom.
Also, in collaboration with the UW/NSF LSAMP program the the project will focus on
outreach activities by providing opportunities for underrepresented minorities and women
to work in an engineering setting.